Complexity in Complex Analysis

ABSTRACT

Complexity of the objects of complex analysis

(DMS-0305958)

Steven R. Bell

Prof. Bell has shown that the most widely used kernel
functions and metrics of complex analysis associated to
certain finite Riemann surface are elementary combinations
of only three, and sometimes even two, analytic functions of
one complex variable related to special conformal mappings
of the domain. Bell will study deeper questions about
complexity in complex analysis and potential theory posed by
his recent findings and he will extend his results in the
plane to quadrature domains and general finite Riemann
surfaces. Bell has formulated a unique continuation
principle for the inhomogeneous Cauchy-Riemann equations
that he has shown yields information about the behavior of
holomorphic mappings between domains in complex space. He
will apply this principle to some of the questions mentioned
above and he will also use the property to try to gain a
more geometric understanding of the Bergman projection in
several complex variables.

The mathematical objects of potential theory and conformal
mapping are ubiquitous in Science, Mathematics, and
Engineering. They carry encoded within them a vast amount
of information about geometric properties of regions in the
plane. Although these objects are familiar and well
studied, they continue to be a source of interesting and
applicable new mathematics. Professor Bell will express the
classical objects of potential theory associated to a two
dimensional surface with holes in terms of much simpler
analytic objects. These results will give rise to new and
practical methods for understanding and zipping the solutions
to many problems in differential equations, conformal mapping,
and potential theory that should be of interest, not only to
mathematicians, but to scientists and engineers as well.
Because humans best perceive higher dimensional objects by
taking a series of two dimensional slices, the tools
developed could find many applications.